Design and Analysis Issues in Group Research

Research in the area of small groups is important if we are to understand how classrooms, therapy groups, families, committees, and friendship groups operate and how these groups can become more productive. Much of the current group research uses theories and models developed for the study of individual behavior. This individual focus is, in part, due to the current limitation in the available statistical tools. Commonly used analytic methods either ignore or treat as a nuisance the fact that persons interact and influence one another. Five different areas of investigation are proposed. First, models will be developed and tested to explain the process by which members of the same group become more similar to one another than members of different groups. Second, methods to determine the ways in which a person's behavior changes when he or she leaves one group and enters another will be developed. Third, we will model the extent to which the norms of a group change when the one member leaves the group and a new person enters the group. Fourth, methods to study how family members perceive one another will be explored. Fifth, methods to measure the extent to which competing groups develop antagonistic norms will be developed. For each area, procedures for data collection and statistical analysis as well as computer software will be developed. For each area, data will be analyzed to illustrate the new analytic method. Upon completion of this research, there will be a set of tools that can be used to measure the process by which group members create norms and the extent to which these norms influence the group members. The techniques can be applied in social psychology, organizational behavior, family studies, sociology and educational psychology.